Initial Study of the Mexicali Hospital Damaged in the November 24, 1987 Superstition Hills Earthquake

Quantitative data on the behavior of structures during earthquakes is important to the evaluation of design methods and building code provisions. These data allow analytical models to be verified and major damage patterns to be observed. This research project uses quantitative data collected during the November 24, 1987 Superstition Hills earthquake. Specifically, instruments recorded the structural behavior of a hospital building on the threshold of major damage. The research project provides documentation of the damage to the structure. Additionally, vibration tests are being conducted both prior to and after the structure has been repaired and retrofitted. This research, along with the analytical study, provides for an evaluation of current design procedures and seismic design code provisions.